A Series of Workshops on Security in Emerging Areas

The proposal is to fund travel costs of students and invited speakers to attend the thirteen workshops affiliated with the annual ACM Computer and Communications Security Conference to be held in Chicago, November 2009.